Workshop on Experimental Particle Physics; Bogota, Colombia,August 15-26, 1988

This award will support a workshop on experimental particle physics to be held at the Centro Internacional de Fisica (CIF) in Bogota, Colombia. The workshop, jointly organized by Prof. Uriel Nauenberg of the University of Colorado at Boulder and Prof. Galileo Violini, Executive Director of the CIF, will have as its main objective an overview of the present status of experimental activity in elementary particle physics, with emphasis on topics of potential research interest to physicists in Latin America. Topics to be discussed include: accelerator and non-accelerator experiments in particle physics, experimental astrophysics, cosmology, technologies associated with experimental particle physics such as synchrotron radiation, superconducting magnets, cryogenics, and vacuum systems, radiation therapy and nuclear medicine, and advanced electronics and computers. A final objective will be a review of the present experimental activity in Latin America and the feasibliity of new experimental projects in the near future with close attention to collaboration with centers of research in the industrialized world such as Fermilab in the U.S. and CERN. The workshop will include active research physicists and is aimed at stimulating collaborative ties between researchers in Latin America and at major experimental research centers in the U.S. As such it builds on existing ties with other collaborative particle physics groups elsewhere in Latin America, particularly in Brazil and Mexico. By bringing experimentalists of renown to discuss with their Latin American counterparts feasible projects for developing countries, this workshop serves to advance the objectives of the Science in Developing Countries Program.